CAREER: Low Loss, Tunable Ferroelectric Thin Films by Pulsed Laser Deposition

9702632 Xiaoxing Xi The research of this CAREER project studies the dielectric nonlinearity and microwave losses of ferroelectric thin films deposited by Pulsed Laser Deposition. Compared to bulk single crystals, the nonlinearity of ferroelectric thin films is smaller and the loss is higher, the cause of which is not well understood. This project aims to address these problems by focusing on the effects of four factors: (1) Stoichiometry; (2) Crystallinity; (3) Interface layers and space charges; and (4) Soft-mode phonons. The goal of the research is to reveal the fundamental mechanisms so as to reduce the losses while maintaining a high nonlinearity in ferroelectric thin films. The education plan is to develop a "Ferroelectric Thin Films" experiment for the Physics undergraduate laboratory course, which includes film deposition, structural and electrical characterizations and data analysis. %%% This integrated CAREER research and education project focuses on ferroelectric thin films used in voltage-tunable microwave devices. Such application requires large dielectric nonlinearity and low microwave losses in ferroelectric thin films. This research aims to reveal the fundamental mechanisms that determine these properties in order to improve them thus impacting the development of ferroelectric tunable microwave device technologies. The education plan attempts to incorporate research experience into the physics undergraduate curriculum. A "Ferroelectric Thin Films" experiment will be developed and included in the regular laboratory course so that students can get real-life research experience in this course. ***